Numerical Simulation of Transition in a Compressible Boundary Layer on the Connection Machine

A direct simulation of compressible boundary layer transition will be carried out. A fourth-order, phase-accurate version of the MaxCormack explicit scheme will be employed to numerically integrate the full, three-dimensional, time-dependent compressible Navier-Strokes equations. The computations will be performed on the massively parallel Connection Machine CM2 which will take full advantage of the explicit solution procedure. The two dimensional version of the code is currently running at a rate of one Gigaflop, which is about five times as fast as a CRAY 2. In addition to providing a multi-disciplinary research environment focused on the application of parallel processing to computational fluid dynamics, the proposed work offers the unique advantage of training future aerospace engineers in this emerging technology.